Acquisition of Nuclear Magnetic Resonance Spectrometer

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at Western Kentucky University will acquire a 400 MHz NMR Spectrometer. This equipment will enable researchers to carry out research on a) synthesis of phosphines and phosphine macrocycles; b) cesium based promoted chemoselective N-alkylations; c) template synthesis of dendrimer spheres using monolayer-protected clusters; d) characterization of Cobalt (III) complexes; e) metalation in hydrocarbon solvents; and f) complexation between cisplatin and methionine and guanine.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic chemistry and physical biochemistry.